RUI: Linear and Nonlinear Excitations in Layered Antiferromagnets and Nanostructured Magnets

9703783 Stamps This grant supports the work of a young theorist at a predominantly undergraduate institution. The research projects in this grant are a continuation of seminal work by this PI on dynamical properties of magnetic moments in magnetic thin films and epitaxially grown magnetic superlattices. Here the PI is proposing work on a possible new way of determining the exchange coupling between thin magnetic films by examining the properties of domain wall resonance. Other projects consist of: (1) Role of structural defects on the magnetic order and magnetic phase transition in thin films and (2) study of dynamic nonlinear effects in arrays of quantum dots. %%% This young PI, at a predominantly undergraduate institution, is being supported to work on the theory of magnetism in thin films and very small grains. Some of the research focuses on finite frequency behavior. The PI suggests that one can gather information about the magnetic interactions by studying the motion of domain walls with respect to each other, in adjacent thin films. He is planning to develop a theoretical formalism to describe the high power absorption in arrays of very small grains. Finally he is also planning to study the relationship between structural defects and the magnetic order and magnetic phase transitions in thin films. ***